Next Generation Manufacturing Network-International (NGMNET-I)

9528296 Jordan This project connects the Institute for Manufacturing and Automation Research to the Internet over a 128Kbps line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year.